Experimental Study of Two Dimensional Electron Layers

9401561 Andrei Technical abstract: Electrons on a helium substrate form a two dimensional electron system. This system will be investigated in a region of the phase diagram where correlations between electrons determine the in-plane and out-of-plane dynamics. The experiments focus on (a) the phase boundary of the electron crystal and how it is affected by screening; (b) the interplay between the electron crystal and Landau quantization in the presence of a perpendicular magnetic field; (c) the effects of crystal correlations on tunneling; (d) the effect of the Landau quantization on magneto-tunneling rates. Non-technical abstract: Electrons captured on a thin layer of helium at very low temperatures form a two dimensional system which can serve as a prototype system for the study of electron states in more conventional states of condensed matter. The key task required for realizing a case in which very many electrons are clustered on the helium film is to reduce significantly the impurities and roughness of the underlying solid on which the helium film is deposited. This project will focus on utilizing ultra clean and ultra smooth solid substrates in order to achieve such a high density of electrons which has not been previously achieved. This high electron density will allow search of as yet undiscovered effects which will be important to the electron on helium problem in particular, but also to other two dimensional electron systems in general. ***